SEES Fellows: Pathways & Partnerships in Adaptive Drought Communication in the Great Plains

The project is supported under the NSF Science, Engineering and Education for Sustainability Fellows (SEES Fellows) program, with the goal of helping to enable discoveries needed to inform actions that lead to environmental, energy and societal sustainability while creating the necessary workforce to address these challenges. Sustainability science is an emerging field that addresses the challenges of meeting human needs without harm to the environment, and without sacrificing the ability of future generations to meet their needs. A strong scientific workforce requires individuals educated and trained in interdisciplinary research and thinking, especially in the area of sustainability science. With the SEES Fellowship support, this project will enable a promising early career researcher to establish herself in an independent research career related to sustainability. This project builds upon Resiliency Theory and theories of applied community participation to explore two specific contexts of participatory communication (i.e., processes of collective learning and shared meaning) at the science-society interface: (1) adaptive co-management meetings in New Mexico and Oklahoma, and (2) existing education efforts by drought scientists at two Great Plains universities (Oklahoma State University and University of Nebraska-Lincoln). A mixed methods approach (including, household surveys, oral histories, key informant interviews, and pilot tests) will model community-partnership capacity for drought adaptation in Cimarron (OK) and Union (NM) Counties, and assess the impact of community-academic partnerships on drought literacy and adaptive capacity across the Great Plains. Research in adaptive co-management meetings and interactive media (as contexts for participatory communication between scientists and citizens) provides the context for innovative case study research on the role of public communication about science in community drought adaptation.

Collaboration in case study research with Host Mentor Vadjunec and outreach efforts with Partner Institution Mentor Thomas (UNL) offers a unique opportunity to research the intersections of participatory communication and scientific literacy about the human and climatic drivers of extreme drought. The core research questions addressed by this proposal are, (1) What formal and informal pathways, players, and partnerships exist for participatory communication between scientists and citizens about drought vulnerability and adaptation, (2) How does communication about drought risk and recovery inform the effective diffusion and translation of drought literacy efforts in the Great Plains, and (3) How can we design forums and spaces for sustained interaction (i.e., engagement and collective learning) between stakeholders involved in adaptive drought communication? The project objectives uniquely related to advancing research at the intersections of sustainability science and education are, (1) to identify dimensions of community and partnership capacity for drought education and pathways of adaptive drought communication across scales, (2) to advance dynamic participatory models which assist in the adaptive co-management of water resources in local communities (i.e., increasing citizen-science dialogue, mobilizing community leaders, and fostering the drought education partnerships), and (3) to design and measure the success of drought literacy efforts based on inputs from sustainability scientists at various stages of community decision-making. The adaptive drought co-management workshops in NM and OK provide spaces for stakeholder interaction, which may lead to new approaches, innovations, and learning outcomes for communities in those regions. Outreach partnerships with UNL maximize dissemination of user-friendly and culturally-relevant drought outreach products, including a project website to consolidate scientific knowledge about drought in the Great Plains and interactive media templates. Interdisciplinary collaborations and research findings will inform efforts in academic community partnerships for sustainable practices across many NSF-supported disciplines.